Postdoctoral Research Fellowships in Chemistry

Dr. Robert T. Kennedy has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Kennedy's doctoral degree was from the University of North Carolina under the supervision of Professor James W. Jorgenson. Dr. Kennedy intends to continue research at the University of North Carolina under the sponsorship of Professor Mark Wightman. Dr. Kennedy's area of postdoctoral research will be the development of an electrochemical sensor capable of monitoring glucose and oxygen in the brain. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.